SBIR PHASE II: Construction of Large High-Field Permanent Magnet Dipoles

9817431
This Small Business Innovation Research Phase II project will be to construct a pair of high-field hybrid dipole magnets. In Phase I the analytical techniques and general design methodology were developed to produce large, high precision, high-field (up to 1.8 T) hybrid iron-yoke/rare-earth dipole magnets. These new tools were then applied to designing a 1 T tunable field 'box' dipole with a reversed fringe field to be used in a compact 70 MeV recirculating electron accelerator. The Phase II research will be directed toward constructing these magnets, based on the Phase I design, which will then be installed and tested in the accelerator.
Large, high-field hybrid rare-earth dipole magnets can be used in industrial and research accelerators, beam transport lines, and spectrometers, as their construction is simpler than, and their performance is superior to, conventional electromagnets. Eliminating magnet coils and their power supplies reduces the electrical power consumption, servicing costs, control system complexity, and space requirements while increasing the reliability at a capital expenditure comparable to that of conventional electromagnets.